Upgrade of Computer Server to Enhance Internet Data Distribution Capabilities

Abstract ATM-9526636 David Changnon Northern Illinois University UNIDATA: Upgrade of Computer Server to Enhance Internet Data Distribution Capabilities. Funds will upgrade the present computer capacity in the Geography Department. This upgrade will increase the server speed by eighty- five percent which will, in turn, assist the department in its various internal and external computer needs.